Galois Representations and Modular Forms

A big theme in number theory in the last 50 years has been the relationship
between automorphic forms, Galois representations and objects from algebraic
geometry. There is an extensive web of extraordinary conjectures (for instance
the Artin conjecture, the Shimura-Taniyama conjecture, Langlands' conjectures,
Serre's conjecture and the Fontaine-Mazur conjecture) linking these three
seemingly very different subjects (which relate to analysis, algebra and
geometry respectively). Progress on these conjectures is currently very
exciting. Under his previous NSF grant the PI proved (with Michael Harris) the
local Langlands conjecture for GL(n) of a p-adic field; completed (with
Christophe Breuil, Brian Conrad and Fred Diamond) the proof of the
Shimura-Taniyama conjecture; found (with Kevin Buzzard, Mark Dickinson and
Nick Shepherd-Barron) the first infinite families of non-soluble irreducible
Artin representations for which one could prove the Artin conjecture; and
established the meromorphic continuation and functional equation of the
L-functions of all abelian varieties ``of GL(2)-type''. The PI will
continue to work on related problems. In particular he will work with Michael
Harris to generalise the work of Wiles and of Wiles and the PI from GL(2) to
GL(n). There seems to be just one significant problem remaining in the way of
a really useful result. If this problem can be overcome the PI will work with
Michael Harris and Nick Shepherd-Barron on applications to the arithmetic of
elliptic curves. The PI will also look for generalisations of his work with
Michael Harris on the local Langlands conjecture for GL(n) to other
reductive groups.

This circle of ideas is the one that led to Andrew Wiles' celebrated proof of
Fermat's last theorem after over 300 years. They fall into the general area of
arithmetic geometry - a subject that blends two of the oldest areas of
mathematics: number theory and geometry. This combination has proved
extraordinarily fruitful. Among its many consequences are new error correcting
codes. Such codes are essential for both modern computers (hard disks) and
compact disks.